RUI: Control of Cell Proliferation and Differentiation in Adult Cardiac Muscle

The aim of the proposed work is to determine the optimum conditions required to maintain and grow adult cardiac muscle cells in serum-free long term culture. This study will formulate an effective, serum-free, chemically defined growth medium, using different growth factors, hormones, and chemicals for vigorous cell proliferation and continued survival. The effects of growth conditions on DNA synthesis, DNA polymerase and thymidine kinase activities will be evaluated in these myocyte cultures. Biochemical and immunological studies will be done in order to identify and characterize myosin isoforms in these cells, and electron microscopy will be carried out to monitor cell fine structure during long term cell culture. Studies of adult cardiac cell biology have been hampered by the absence of a long term cell culture system, so that one immediate benefit of the work proposed will be the establishment of such a system. The long term significance will be an increased knowledge of the cell biology, physiology, and pharmacology of cardiac myocytes.